Mechanics and Seismotectonics of Mountain Building in Western Pakistan

Although considerable progress has been made in understanding of the mechanics of thin-skinned contractional belts, it has been difficult to rigorously test theoretical models due mainly to the lack of adequate data, particularly from tectonically active examples. This project will refine theoretical models of the effects of basement obstructions on this thin-skinned tectonics and other issues and test them using examples from the Salt Range, Sulaiman fold belt and the Chaman fault of Pakistan. Results should result in more vigorously tested models of the mechanics of fold-thrust belts.